MRI: Acquisition of Electron Beam Evaporation System for Multidisciplinary Research and Education

The objective of this research is to materially strengthen the fabrication of micro/nanoscale functional devices for the multidisciplinary research and education within the areas of micro/nanoelectronics, bioengineering and physics. The approach is to acquire an electron beam evaporation system within the Shared-Access Facility at George Mason University (GMU) to deposit thin films and multilayers of metal, semiconductor and oxide materials with thickness at nanometer precision.

Intellectual merit: The requested system will enhance the capability of depositing thin film materials to form electrodes, insulator, semiconductor channels and nanostructures, allowing collaboration among university and local industry researchers for a wide variety of applications including nanoelectronics, energy and biomedical devices. The requested instrument will enable research into high-performance nanowire MOSFETs, biosensors, symbiotic surfaces, organic solar cells, topological insulator materials and nanoscale field effect diodes. The enabled research will deal with fundamental questions and issues in a wide range of disciplines in physics, electronics, biology and chemistry, and will ultimately facilitate cross pollination between these groups leading to new veins of research.

Broader impacts: The research enabled by the requested system will have significant impact in the development of future health technology, nanoelectronics and solar energy conversion devices. The requested instrument will be available to a large number of students, post-docs and faculty in GMU, other universities, national labs and industrial partners that involve a large proportion of underrepresented minorities and women. Hands-on experience with state-of-the-art equipment makes students and post-docs well-prepared to enter the workforce ready to engage in research, development and manufacturing.